Study of Electron-Molecule and Ion-Molecule Reactions Using Rydberg Atoms

In this program in Experimental Physical Chemistry, Prof.Dunning (William Marsh Rice University) will use molecular beam techniques to steer electrons loosely attached to parent atoms into a chemically active environment. This permits an unprecedented degree of control over electron catalyzed ionization reactions. %%% Giant pseudo-atoms, up to hundreds of times bigger than those commonly available, will be prepared by Prof. Dunning (William Marsh Rice University). These atoms provide a powerful new source of electrons which Dunning will use to understand the fundamental basis of reactions which involve electron attachment and de-attachment -- processes which underlie an enormous variety of gas-phase chemical processes.